Integration of Molecular Modelling into the Chemistry Curriculum

9450995 Devino This project will integrate molecular modelling into the chemistry curriculum at Dickinson College. A primary goal of our revised curriculum is to blur the boundaries found in traditional chemistry programs. The distinction between lecture and lab is blurred in the one-semester, discovery-based introductory course. The intermediate and upper level courses break down the traditional divisions within the field of chemistry, reflecting the fact that real-world problems in chemistry are best solved using an interdisciplinary approach. This concept is further emphasized in the Integrated Lab sequence for junior and senior chemistry majors, which includes independent laboratory projects from overlapping areas of chemistry. A second goal is to teach students to visualize molecules, understand their physical properties and predict their chemical reactivity. These tasks are central to all disciplines of chemistry, and will be incorporated into each student's independent research project. The primary goals will be accomplished through purchase of: (1) student computers on which to run molecular modelling software; (2) an instructor workstation for high-end computational chemistry as well as demonstration purposes; and (3) a file server plus additional accessories to network all of the computers. State-of-the-art molecular modelling software and hardware requested here, only recently accessible to the undergraduate market, are the tools we propose to use as the unifying theme in the curriculum. The incorporation of sophisticated computer technology into our curriculum will help prepare students for postgraduate education or employment opportunities in chemistry.